DIMACS Workshop on Computational Geometry and Computer-Aided Design and Manufacturing

ABSTRACT
0230858
Fred Roberts
Rutgers U New Brunswick

DIMACS, the Center for Discrete Mathematics and Theoretical Computer Science, will
run a workshop entitled Computational Geometry and Computer-Aided Design and Manufacturing.
The purpose of this workshop is to promote the interaction between Computational
Geometry and Computer-Aided Design and Manufacturing by bringing together,
in a single forum, researchers from both of these .elds to assess the current state of work
at the interface of the two fields, to identify research needs, and to establish directions for
collaborative future work. Topics to be addressed include geometric aspects (modeling and
representation techniques, data structures, algorithms and analysis, software development,
implementation and testing, etc.) of: manufacturing processes, manufacturing and assembly
planning, rapid prototyping technologies, model acquisition/reconstruction, reverse engineering,
computational metrology and tolerancing, mechanism design, constraint systems,
simulation and visualization in design and manufacturing, solid modeling related to manufacturing,
computer vision and robotics related to manufacturing, and manufacturing in
specific applications (e.g., biomedical, textile, automotive, aerospace engineering etc.).